Study of Transient Phenomena in a Small-Scale Hazardous Waste Incinerator

The objectives of this project are the following: (1) To investigate transient phenomena which lead to incomplete combustion of hazardous wastes. (2) To assess the relationship between incinerator size (cost) and reliability, and to identify the chemical and fluid mechanical phenomena which may limit the ultimate degree of waste destruction in small systems. (3) To evaluate the use of high volumetric heat release rate aerospace technology in the development of small incinerators, including how combustion acoustics might be used to improve and/or monitor incinerator performance. The objectives above are to be addressed by means of an integrated program of experiments and numerical simulations. The experiments are designed to follow the instantaneous velocity, temperature and hydroxyl radical concentration fields in the combusting fluid, from which the three T's of incineration (residence time, temperature, and turbulence intensity or mixing) can be calculated. Experimental results are to be used in the development of a 2-D transient combustion model based on the numerical solution of the conservative form of the conservation equations. Realistic chemistry and transport, capable of accurately representing the interaction of the flame with large scale vortical structures found in the combustor, are to be used. The results are expected to contribute to the development of small, reliable incinerators which can be used effectively on the site of small waste generators.